In Situ Calibration of Constitutive Models, Phase 1 Feasibility Study

This research is to establish a general validity of in situ calibration technique and compare the predicted and measured soil response. The research will be completed in three phases. The first phase evaluates the theoretical feasibility of the approach for in situ calibration of selected soil constitutive models, taking into account the variations in soil parameters. The followup phases will construct a laboratory model of the in situ calibration device and carry out field verification tests to verify the performance of the models under in situ conditions.